Recursion: Structural Complexity in Language and Cognition

Workshop on Recursion

It is well-known that language is an window into the human mind, not
just because our words reveal our thoughts, but because the way we put
words together reflects principles of organization that allow
creativity to flourish. Recent mathematically based research in
linguistic theory has identified computational principles that promise
to provide the software behind our neurological hardware. This
workshop will bring together linguists, biologists, psychologists,
philosophers and computer scientists who are discovering how these
linguistic principles provide the abstract basis for language learning
and learning in general. Central to this enterprise is a simple
concept, recursion, the idea of building complex structures through
repeated application of simple rules, which may provide a metaphor for
the organization of all human action.

This workshop is timely because research on complex structures in
language and cognition is now reaching a point where the various types
of complexity can begin to be defined with sufficient precision to
consolidate results and discover the sources and limits of complex
human cognition. By identifying the ways in with complex structures
and complex can arise from the application of simple rules, this
research lays the foundation for new ways of designing curriculum for
optimal learning, new perspectives on artificial intelligence and new
insight into the evolutionary changes that distinguish animal
cognition from human cognitive abilities.